Engineering Equipment Grant: Aquisition of X-Ray Spectrometer

This equipment request is for acquisition of a double crystal x-ray spectrometer system that will be used in the evaluation of films and quantum well structures, such that optimum molecular beam epitaxial growth techniques can be developed. At present there is a significant increase of interest in II-VI semiconductors due to recent success in growth of films and multiple quantum well structures of those materials by molecular beam epitaxy. Applications now envisioned include infrared detection, nonlinear optics, blue LED and laser devices, and flat panel electroluminescent displays. The research effort described in this proposal represents a leading program in the study of several aspects of II-VI epitaxy. The proposed research deals with fundamental concepts of heteroepitaxy, the optical and electrical properties of quantum wells, and the general problems of charged-particle transport in these potentially important materials.